SST: Integrated Multi-Analyte Microelectrode Array Sensors for In Situ Environmental Monitoring

0529217 Papautsky
This project will develop a solid-state microelectrode sensor for inorganic phosphate using a cobalt oxide matrix. The sensor will be combined with analogous microsensors for redox potential and pH to form multi-analyte sensor arrays on a CMOS signal-processing chip. The sensor will be characterized in terms of calibration curves, stability and reproducibility of measurements, detection limits, and response times. The long-term goal is to develop integrated microelectrode array sensors for in situ monitoring of water quality that surpass current sensing tools in capabilities and greatly decrease monitoring costs.